Mantle Control of a Dynamically Evolving Spreading Center

The objective of this project is to test several ideas concerning the dynamic processes responsible for cresting spatial and temporal variation in ridge geometry on the slow- intermediate spreading rate ridge system in the South Atlantic from 31 to 36 South. Program involves two ship board legs to conduct geophysical studies including gravity, magnetics, and seismic refraction, along with Seabeam and dredging. Shipboard program is to be followed by lab based geochemical analysis and 3 dimensional numerical modeling of results. %%% This is an exciting project from a first rate team of investigators who are attempting a very thorough study of fundamental processes at ridge crests. The multi-disciplinary approach is a positive step forward, as is the idea of studying deep seated process such as mantle upwelling in conjunction with their surface expression in gravity, and geochemistry.